New State Roles: Environment, Resources and the Economy

A major objective of the Directorate for Scientific, Technological, and International Affairs is to encourage the pace and direction of technological innovation and economic productivity through activities and initiatives that stimulate interactions between Federal, State, and local government, academia and industry. This conference provides a broad forum for the exchange of experience and information within this alliance. The conference interactions will be useful to all participating sectors and of special utility to Federal decision makers responsible for science and technology policy. The Houston Area Research Center is presenting the 1988 Woodlands Conference, New State Roles: Environment, Resources and the Economy, on November 13-16, 1988. STIA will support two of the working groups for the conference. The working group on regional economic development will assess state programs and policies designed to stimulate regional economic growth. The group will discuss existing and developing state economic development programs, assess the impact of those programs, and identify program components or development strategies that appear to be most effective. These strategies include relationships between state and federal governments, between state governments and universities, and between state governments, universities and the private sector (business and industry). The working group on strategies will examine ways to improve policy decisions at the state level. This working group will take a general look at new state roles and examine crosscutting issues of the efficiency, effectiveness and equity of state initiatives.//